Faculty Career Development Including Kinetic Physics of the Magnetotail and Teaching Enhancement

This proposal is designed to support the early career development of the Principal Investigator in her position as a new faculty member in the School of Physics and Astronomy of the University of Minnesota. This position requires both excellence in scientific research, excellence in teaching, course development, and community outreach activities. The research component of the proposal is focused on the kinetic physics of the Earth's magnetotail, including data analysis, numerical studies, and both inputs to and comparisons with various theoretical models of the magnetosphere. Previous studies of electric field data in the magnetotail have shown that the variable part of the field is usually one to two orders of magnitude larger than the background field. These variable fields, including waves and large amplitude spikes, will have a large effect on particle distributions as has been shown in preliminary numerical studies. It is proposed to characterize statistically the parameters of the waves and spikes using data from the ISEE-1 and Geotail spacecraft. The results will be used to provide empirical dissipation coefficients for use in MHD simulations and global models and to develop a more realistic electric field model for inclusion in the numerical study of particle trajectories in the magnetotail. The particle distributions will then be compared to those observed on the AMPTE/IRM spacecraft (as well as other plasma data). As part of this comparison, the nature of the complex distributions observed at the plasma sheet boundary will be examined including effects such as acceleration of electron beams in slow mode shocks and the mapped location of the auroral zone/polar cap convection boundary. The educational component will be focused primarily in two areas, both of which have very high priority for the School of Physics and Astronomy. The first is improvement in the lower division physics with calculus class which is the main introductory physics clas s for engineers, physicists, and chemists with approximately 1200 students per quarter. Modification of this course and TA training for the course are an ongoing effort. The second is inclusion of undergraduates in research which has been a longstanding priority for the PI. In addition, there are many ongoing projects including local efforts to improve K-12 science teaching, development of new undergraduate courses, and outreach activities to share the excitement of physics research with the community in which the PI will participate, particularly in the later years of the proposal.